High Resolution Rotational Analysis of Singlet-Triplet Spectra of Polyatomic Molecules

The Experimental Physical Chemistry Program supports Richard Judge of the University of Wisconsin-Parkside to continue his high resolution spectroscopic studies of singlet-triplet transitions in silicon difluoride, selenium dioxide, methylene selenide and acetaldehyde. In the first three cases, he will extend earlier work to either higher resolution or higher vibrational levels. In the latter case, he will investigate internal rotation in the excited triplet state. Analysis of the spectra will yield accurate information about the geometry and excited state molecular dynamics. This information will greatly assist in the interpretation of the observed photochemistry. In particular, perturbations uncovered in the analysis of the singlet-triplet spectra will yield valuable information on the disposal of excess energy gained on electronic promotion. Undergraduate students will directly participate in the research either during the analysis or data acquisition.